Conference on Foundations of Developmental Biology, Sante FeNM, October 1989

This conference will bring together 20 philosophers of biology, developmental biologists, evolutionary biologists, and theoretical biologists to examine a number of philosophical and conceptual issues which arise in developmental biology and its implications for evolution. The three focal areas will concern: 1) the place of theory in developmental biology; 2) self- organization and selection as balancing and collaborative processes in development and evolution; and 3) implications of a proper theory of development for evolution. Some of these issues are not new, others have never been addressed. In particular, the intertwined roles of self-organization and selection constitute a large new problem area never confronted in physics, nor yet well formulated in biology. The group which will come together includes expertise in a variety of areas of philosophy and biology which bear on the issues raided. The aim is to produce a clear statement of research programs to advance in each of the three domains. The results of the conference will hopefully be published in the Quarterly Review of Biology, and also will likely be published in a single volume from the Santa Fe Institute.